Utilizing Research Teams to Facilitate Undergraduate Research

Undergraduate psychology students' science education is being improved by providing computer controlled data collection stations, multiuser workstations for data analysis, and file service for students involved in original research. Students join ongoing research teams organized around specific research problems, and make contributions to that area by conducting their own original research experiments and continuing work of previous students using the research team's data pool. The college will contribute an amount equal to the award.